Improvement of Instrument Based Instruction in Chemistry

The recent acquisition of a state-of-the-art nuclear magnetic resonance spectrophotometer (Varian EM 360L) is enabling the chemistry department at CUNY Lehman College to implement major curriculum revisions in the organic chemistry laboratory courses, to introduce important NMR-based experiments in physical chemistry, instrumental analysis, and biochemistry, and to enhance student learning in undergraduate research. Since the undergraduate enrollment at this institution is predominantly minority, these revisions will significantliy affect undergraduate instruction for this group which has been traditionally underrepresented in science, mathematics and engineering.